Population Structure of Key Antarctic Fish and Invertebrate Resource Species

9714439 Gaffney Characterizing the population structure of important Antarctic species is essential to an improved understanding of Antarctic ecology, and the successful management of this ecosystem. The British Antarctic Survey (BAS) has initiated a collaborative international effort (Project Gene Flow) aimed at delineating population structure in several key species (fish, squid and krill). A one-month cruise in the Scotia Sea to obtain biological specimens and oceanographic data is scheduled for November 1977, and this represents a unique opportunity to apply both established and novel molecular techniques to an important problem in Antarctic resource management. Four commercially and/or ecologically important species will be the primary targets of the research: mackerel icefish, Patagonian Toothfish, Antarctic Krill and the Seven Star Flying Squid. A variety of molecular genetic techniques, including some that are well-established and others that are novel but extremely promising, will be applied to delineate genetic population structure in these species. This research will provide information on the whether separate "stocks" or genetically different populations of these species exist in Antarctic waters. This information will be useful in the management of these species.